Efficient Web-based Serving of Consolidated Multi-Source Biological Sequence Data Extracts

Many interesting questions in biology involve initial data preparation steps that can turn out to be very cumbersome and time-consuming. Specialized and general public molecular biology data repositories continue to grow in size and number. Many emerging research questions require access to multiple data sets for use in specific research situation, usually using only a subset of the data from each repository. Access and querying of these multiple sources presents a very real problem to researchers. A complicating factor is the erroneous nature of some annotation data associated with sequence.

The creation of a BioExtract Server for consolidating and serving curated data extract from public databases will be developed initially for subsets of GenBank and ZmDB to be of use to maize and other plant researchers. The Server will provide automated curation and identification of misalignment in the sequence repository. Accessed over the web, users will be able to select a specific set of techniques, make flexible queries, specify resources to use and name and keep their selections for reuse.

In addition to providing educational opportunities for both graduate and undergraduate students, there will also be summer internships available. Tutorial packages for various levels of expertise will be prepared for users to enhance the accessibility of the Server to as wide a range of users as possible.